Energetic and Structural Studies of Functional Group Pairs for Materials Research

In this project funded by the Advanced Materials Program of the Chemistry Division and the Solid State Chemistry program of the Division of Materials Research, Hollingsworth will design organic solids with specified structure, reactivity, and physical properties. The energetics of organic functional group interactions in the solid state will be developed by studying guest species in channel inclusion compounds. The interaction energies obtained will be useful in materials chemistry for facilitating supramolecular design and synthesis of new organic materials. The ultimate goal is to synthesize organic molecular crystals with the same degree of stereocontrol that is now commonly achieved in single molecule organic synthesis. %%% This research program represents a rational and holistic approach to understanding intermolecular forces in organic solids and is expected to greatly facilitate the design and development of new organic materials. Among the likely applications of this proposed research is the fabrication of devices with nonlinear optical properties useful in laser-based systems, such as communications.